Learning Sciences and Brain Research

This proposal will provide funds for three international conferences to examine and expand the relationships between brain science and education. The conferences will be organized around three stages of development: young children; adolescence and adult.